NSF Young Investigator Award

The goal of this research is to determine the mechanisms of fatigue damage in fiber-reinforced ceramics. Particular attention will be given to determining the influence of microstructural damage on the microscopic fatigue response of these composites.